Multi-Component Diffusion in Silicate Melts

The principal investigator will theoretically and experimentally study multi-component chemical diffusion in silicate melts. The primary goal is to derive and validate a model for multi-component diffusion in which the required quantities are self-diffusion coefficients and thermodynamic properties that can be obtained in separate experiments. Results of the research will have great importance in igneous petrology and will have wide application to processes occuring within the Earth.